Doctoral Dissertation Research in Political Science: Franchise Extension and Politics of Redistribution in South Africa

This doctoral dissertation research examines the impact changing electoral franchise rules for redistributive policy. The project uses a -natural experiment+ occurring in South Africa. In 1994 South Africa held its first non-racially based election. At that time previously disenfranchised Blacks and Asians were given the right to vote. These groups not only were prevented from voting in general elections, but were much poorer than enfranchised citizens. The research explores whether this large influx of disadvantaged voters led to policies that redistribute state resources to those voters. To test a well specified theoretical model, the researcher has assembled a large amount of fiscal data from South Africa both before and after the 1994 reforms. In addition, the researcher has collected voting and census data so as to assess the demand-side for redistributive policies.